System Simulation Using Computers

This project involves system simulation. Ten undergraduates are spending 8 weeks on campus, receiving formal instruction and participating in research projects. The students are writing computer simulation programs and doing data anaylsis comparing the simulation results with experiments.